Recovery, Evaluation and Dissemination of New Archive Documents on History of Computing

SES 00-01991 -- Colin Burke (Independent Scholar)
SGER: "Recovery, Evaluation and Dissemination of New Archive Documents on the History of Computing"

This Small Grant for Exploratory Research supports the principal investigator's survey of an important collection of newly declassified documents recently released to England's Public Record Office. The newly available documents relate to Allied codebreaking in World War II, and to the path-breaking computer and information management projects tied to those cryptanalytic projects. Through these projects scientists and scientific institutions played a major role in the creation of advanced technology and methods. Among the many important scientists and institutions associated with the efforts were Alan Turing and Vannevar Bush and MIT and Cambridge University.

With the support of this grant the PI will secure copies of the more important items and prepare articles to alert the historical community of the importance of the new collection. The PI will also create an Internet site that will contain indexed and annotated copies of the documents.